Adaptive Discontinuous Galerkin Methods of Transient Partial Differential Equations

The investigators develop very efficient adaptive
discontinuous Galerkin (DG) methods for transient hyperbolic and
singularly perturbed convection-diffusion problems. These
methods use discontinuous bases and thus are very effective at
capturing discontinuities. In addition, they simplify adaptive
h-, p-, and hp-refinement, are simple to implement on
unstructured meshes with irregular boundaries, parallelize very
well, and satisfy local (element level) conservation principles.
Adaptive enrichment by h-, p-, and r-refinement or combinations
thereof has typically been guided by a posteriori estimates of
discretization errors. The investigators study asymptotically
correct error estimates of discretization errors under h- or
p-refinement that provide very reliable measures of solution
accuracy. A posteriori error estimates are developed for linear
and nonlinear hyperbolic and singularly perturbed
convection-diffusion problems. The investigators implement these
DG methods for large-scale problems on modern parallel systems
ranging from advanced supercomputers to clusters of workstations.
Parallel procedures must address heterogeneity at the processor,
memory, and communications levels as adaptivity greatly
complicates matters. A balanced parallel computation may cease
to remain so under adaptive h- or p-refinement. Computational
loads must dynamically be redistributed during the solution
process to restore and maintain balance. Procedures to migrate
work between the processors so as to minimize the computational
time have hardly been addressed in such a heterogeneous
environment.
Complex realistic computer simulations of physical problems
like the flow about a vehicle, weather prediction, and materials
processing require long times on the fastest supercomputers. The
investigators develop very efficient and reliable computational
techniques based on the discontinuous Galerkin method that should
have advantages for parallel and network computation. Accuracy
and reliability of the results are guided by estimates of
solution errors that are automatically obtained as part of the
computation. These are used to create adaptive procedures that
assign computational resources to regions where they are needed
most. The efficiency provided by adaptivity leads to more
accurate computer simulations, better products, and shorter
design cycles.